A Minority Research & Educ. Info. Service: Design, Develop, Pilot Test & Implement on-line Access for HBCUS & Govt. Agencies

This project is designed and developed to implement a pilot program for the establishment of an on-line research and information system. The two main objectives are: 1) To broaden the participation of minorities in the Federal Government's research, development, and education programs; and 2) To provide on-line access to information on minority institutions' education, research, and service programs; such as, institutional data, extramural activity (centers, facilities, equipment and consortia arrangements) and (faculty, undergraduate and graduate students' capabilities).